Integrating Research and Practice through Collaboration on Practitioner-Generated Models

This EAGER proposal engages practitioner perspectives in improving research/evaluation capacity. This project conducts exploratory research to build on a previously developed conceptual framework and a cyberinfrastructure tool (Netway) and designs and tests a protocol for research/practice integration. Twenty STEM education projects will be examined and new measures for engaging researchers and pracitioners will be developed.